Engineering Internship in Solidification Processing

ABSTRACT CTS-9412820 Smith This proposal was submitted in response to the Engineering Faculty Internships Initiative and was submitted to the review process. The proposal requests funds to support an internship for professor R. N. Smith at the Manufacturing Technology Laboratory of the General Electric Corporate Research and Development Center during the summer of 1994. The focus of his efforts while there will be to study and familiarize himself with current manufacturing processes and how improved heat transfer techniques, analysis, and technology can enhance these processes.